Micromechanics of Dual-Phase Plasticity and the Effect of a Prior Phase Transformation

The objective of this project is to develop a micromechanical theory to develop overall, macroscopic response of dual phase metals where both phases are capable of undergoing plastic flow.